Realistic Image Synthesis by Extensions of Distributed Ray Tracing

The main goal of this research project is to improve the realism of computer generated images. Concepts used in ray tracing, radiosity and nonparametric density estimation have been combined into a single algorithm which is capable of handling diffuse illumination, indirect lighting, the separation of wavelengths by prisms, and the focusing of light through lenses. In the new algorithm, images are created using a two step method. The first step uses light sources in the scene to create internal lighting functions. These functions can then be used in a distributed ray tracing environment and the final image can be created. The new algorithm is a synthesis of the radiosity and ray tracing paradigms and the project will help clarify the relationship between these two methods. By taking advantage of the strengths of reach of these methods, this technique efficiently solves a wide range of computer graphics problems.